RUI: Synthesis in Applications of Optimal Control

9971747
Ledzewicz

The project consists of two parts which both address the question of a
regular synthesis for optimal control problems arising in applications. In
the first part sufficient conditions for optimality of abnormal extremals
will be investigated in the context of field theory. A generalization of the
perturbation feedback control law that allows incorporating abnormal
trajectories into the classical framework will be used to construct a local
regular synthesis around an abnormal reference extremal. These
constructions should shed some light on the connections between optimal
abnormal extremals and singularities (including discontinuities) in the
value function for the problem. It is expected that this part of the project
will contribute to both theory and application of perturbation feedback
control, regular synthesis, and sufficient conditions of optimality by
providing generalizations that complement the classical results and
become important new tools in applications. The second part addresses
precise and complete solutions to a class of nonlinear optimal control
problems in low dimensions arising in mathematical models for cancer
chemotherapy. In the models the cell cycle is controlled by clustering its
different phases into compartments and using phase specific killing agents.
In this project a full analysis of two- and three-compartment models will
be pursued. So far these models were only analyzed numerically, but no
qualitative or analytic results about the structure of optimal controls have
been obtained. It is expected that these results, interesting also from a
theoretical point of view, will find applications in mathematical models
for scheduling cancer chemotherapy protocols.

The project consists of two parts which both address the question of
finding full solutions to optimal control problems arising in applications.
The first construction is motivated by the perturbation feedback control
scheme, a classical tool in engineering, especially in aircraft control
design. The proposed construction aims to incorporate so-called abnormal
trajectories for which the conventional scheme is ineffective. It is expected
that this part of the project will contribute to both theory and application
by providing generalizations that complement the classical results and
become important new tools in applications. In the second part of the
project models of optimal control of cancer chemotherapy will be
investigated. The goal is to maximize the number of cancer cells that a
cytostatic agent in the drug kills while keeping the toxicity to the normal
tissue acceptable. Some of the models that were only analyzed
numerically before will be investigated in this project with the aim of
obtaining a full analytic solution. It is expected that these results,
interesting also from a theoretical point of view, will find applications in
mathematical models for scheduling cancer chemotherapy protocols.